Development of Ribosomal RNA-Based Oligonucleotide Probes for Green Ultraphytoplankton

Microscopic, photosynthetic plankton are responsible for a significant portion on the primary productivity in low nutrient ocean waters. However, these ultraplankton which are present are poorly characterized. Algae cultured from these populations may not be representative of the actual dominant organisms. Attempts at describing the structure of deep-water communities by high performance liquid chromatography, flow cytometry, and electron microscopy have provided some important information, but suffer from quantitative and/or qualitative problems. This project plans to develop a different method to address the problem of identifying and quantifying photosynthetic ultraplankton by ribosomal RNA-based oligonucleotide probes. Short strands of oligonucleotides (radiolabelled or fluorescent) which hybridize to specific ribosomal-RNA sequences will be synthesized. Because of the abundance of rRNA in cells, these oligonucleotides can be used to probe mixed populations of whole cells. Probes specific for certain orders of green algae (especially the Mamiellales, which are known to be related to some small coccoid phytoplankton) will be produced and tested with a number of coccoid and flagellate algae. These probes should allow the enumeration of algae belonging to specific orders in field samples.